U.S. Japan Seminar: Molecular, Physiological, and Ecological Aspects of Symbiotic Nitrogen Fixation; October 1995, Kasoshima, Japan

9418732 Stacey This award supports the participation of six U.S. scientists in a U.S.- Japan seminar on Molecular, Physiological, and Ecological Aspects of Symbiotic Nitrogen Fixation, to be held at Kagoshima University, Kagoshima, Japan in October 1995. The co-organizers are Dr. Gary Stacey of the University of Tennessee and Dr. Shiro Higashi of Kagoshima University Both the U.S. and Japan are supporting major efforts in symbiotic nitrogen fixation and interaction between the research groups of both countries will accelerate progress. The seminar topic areas encompass both the plant host and bacterial counterpart in the symbiotic nitrogen fixing interaction, as well as topics ranging from enzymology, molecular genetics, plant cell biology, whole plant physiology, ecology, and ultimately to plant genetics and crop production. This meeting is the third in a series of U.S.-Japan seminars in this field held over a period of 10 years. Although a core of individuals has provided continuity from meeting to meeting, participants in the seminars have changed through the years to reflect an appropriate pairing between U.S. and Japanese participants and the progress of the research. The U.S. participants provide a broad cross section of expertise and geographical representation in the overall area of symbiotic nitrogen fixation, and were selected on the basis of being the most active researchers in the U.S. Therefore, this proposal fulfills the objectives of the Program in its exchange and transfer of scientific knowledge through an international collaboration. ***